STTR Phase II: Microfluidic CD Biochips for Enzyme-Linked Immunosorbent Assays

The Small Business Technology Transfer (STTR) Phase II project will develop a low-cost and mass-producible lab-on-a-chip platform for molecular and biological analyses. The platform is a microfluidic CD for Enzyme-Linked Immunosorbent Assays (ELISA) that reduces cost, accelerates results, and improves reliability of analyses for food borne contaminants, cancer diagnoses and environmental contamination.

The CD-ELISA technology platform merges two scientific areas - polymer microfabrication and biotechnology - and can substantially reduce manufacturing costs, improve device performance, and enable the production of low-cost and high-efficiency devices. Moreover, as such a device would be more affordable it will enable point-of-use results for a broader spectrum of molecular and biological testing.